Representation of a Few-Particle Green Function on a Real Basis

Research is initiated into the development of an entirely real representation of the Green's function for all values of the energy. If successful, it will be possible to perform scattering calculations using a purely discrete representation and this would have a real advantage in practical many-body scattering calculations, especially when 3-body breakup channels are present.